GOALI: Mid-Infrared Ultrafast Spectroscopy of Narrow Band Gap Nanostructures

9707799 Boggess The PI will study ultrafast carrier dynamics in the narrow-band-gap nanostructures typically employed to produce mid-wave infrared radiation. Characterization activities undertaken will specifically focus upon the impact of hot carriers on MWIR diode laser performance. ***